Research and Training in Evolutionary Primatology

9602234 This award renews support for a multi-institutional Research Training Group in Evolutionary Primatology at five institutions in New York City. The faculty group includes 30 evolutionary, population and behavioral biologists at the City University of New York, Columbia University, New York University, the American Museum of Natural History and the Wildlife Conservation Society. The funds awarded will provide stipends for graduate students, will defray part of the cost of the trainees' research, including field work and will help support an annual colloqium. In addition, funds will be used to purchase specialized research equipment to be used by trainees and to bring investigators from other research and academic institutions to give research seminars and in some cases, to participate in longer term training activities. During the original period of support, the participating academic institutions have developed and refined a unique graduate program that allows their students to take courses and pursue research at any of the five member institutions. Evolutionary primatology draws its theory, methods and empirical data from many areas within the biological sciences, anthropology, and geology. The research programs of the participating faculty focus on human and non-human primates from the perspectives of morphology, paleontology, systematics, molecular and population genetics, behavior, ecology, and conservation biology. Thus the training provided by this group will equip students with the broad background necessary for integrative studies in this challenging and interesting area. ***